BEST Conferences, Boise, Idaho

9812810
Scheepers
This award will provide partial support for the featured speakers
and also for some graduate students and other young mathematicians to
attend the 1999, 2000, and 2001 BEST conferences, `BEST' being a
deceptively lighthearted acronym for `Boise Extravaganzas in Set Theory,'
a series of conferences devoted to one of the oldest and deepest topics
in the Foundations of Mathematics. The general format will be to build
each of the three-day conferences around four one-hour lectures by
distinguished set theorists and to round out the program with shorter talks
contributed by those attracted to the featured speakers. This strategy has
been successful in the past---the series of conferences began in 1992---and
participants are widely representative of set theoretic research across
the U.S. and Canada, with increasing participation from countries
overseas. Participation by younger mathematicians, by women, and by
underrepresented minorities has been encouraged. The talks are held in
barrier free classrooms at Boise State University, and efforts are made
to accommodate special needs among the roughly twenty annual participants.
The host institution provides office support and secretarial facilities
without cost to the participants or to the government.
***